Summer School on Language-Based Techniques for Concurrent and Distributed Software

ABSTRACT
Zena Ariola
0622244
U of Oregon Eugene

Everyday life and critical aspects of our economy, defense, and government depend on software. Increasingly, this software is concurrent (with multiple computations proceeding in parallel) and distributed (with computations spread across large heterogenous networks). With chip multiprocessors and ubiquitous computing environments on the horizon, concurrent programming will soon become a primary issue for many programmers. The main aim of this school is to enable participants to conduct programming-language research to meet this pressing societal need. By presenting a range of material, from foundational work on logic and type systems to advanced techniques for analyzing real concurrent software, we will provide a unique opportunity for participants to understand the current research landscape.